A Near-Infrared Camera for High-Resolution Studies of Star Formation

ABSTRACT This project will construct a camera for the near infrared region of the spectrum (1 micrometer to 2.5 micrometer wavelength) for use with the 100 inch Hooker telescope and adaptive optical system, and the CHARA array at the Mount Wilson Observatory. The camera will be applied to three complementary imaging techniques: interferometry, speckle imaging, and lunar occultation.